Transition-Metal Polyborane Interactions: Catalysis and Coordination Chemistry

Professor Larry Sneddon, Department of Chemistry, University of Pennsylvania, is supported by the Inorganic, Bioinorganic, and Organometallic Chemistry Program to investigate polyborane compounds, which in general possess relevant properties useful in applications ranging from cancer agents to high temperature polymers, burn rate modifiers, and most recently as ceramic precursors. To exploit the properties of these polyboranes necessitates a rational, selective development of high yield reaction pathways. Hence, as a first step, Professor Sneddon will focus on novel, general methodologies to enable the development of systematic high-yield syntheses of polyboranes. Concomitantly, attention will also be directed at exploring metal coordination and other chemical and bioactivity properties of the unique clusters so produced. Next, the effort will be expanded into totally new directions, namely into formulating novel types of metal-catalyzed reactions for high-yield selective polyborane modifications, along with the synthesis and evaluation of new types of early metal metallapolyborane clusters, with a particular focus on those metallapolyborane systems that have the potential for antitumor and/or catalytic activity.